Pursuit-Evasion Games with Complex Systems in Complex Environments

Intellectual Merit
Success in the proposed research plan requires progress in two fundamental issues. First, new models
and computational tools that shed light onto the structure of the information available in distributed sensing
and decision making tasks must be developed. Second, algorithms which exploit these structures to design
efficient pursuit-evasion strategies must be designed. These algorithms provide robust and provable solutions to many SAN applications such as tracking. To ensure the practical applicability of these results, they will be adapted for two applications (tracking and surveillance) which can be modeled as pursuit-evasion games and implemented on a sensor-actuator network.
Broader Impacts
Due to numerous applications of pursuit-evasion games, the results of this project are of interest to a
number of communities including control theory, economics and game theory in addition to the algorithms
community. Progress in pursuit-evasion games will help in bringing these communities closer and will lead
to a richer cross-pollination of ideas. To facilitate this, the output of this research will be disseminated as a
monograph. The results of this project are also directly applicable to a number of automation tasks involving
sensor-actuator networks and therefore, they will participate in the formation of the next generation of
automation technologies through progress in distributed sensing, and decision making. In particular, their
utility will be demonstrated on a prototype system for monitoring the elderly through a collaboration with
Northeast Health, located in the Samaritan Hospital (Troy, NY) which specializes in remote care technologies.
The contribution of this project to the integration of research and education will be twofold: First, the
experimental pursuit-evasion game setup will be utilized to attract minority and female students from local
primary and secondary schools to new outreach programs. Half of the student population in schools adjacent
to Rensselaer Polytechnic Institute's campus (Troy Public High School, Troy Middle School and Public
School 14) are under-represented minorities. The outreach programs will include pursuit-evasion games
where the students will play against the experimental SAN setup. Solutions to simple pursuit-evasion games
will stimulate the students' interests in science and mathematics. Second, a new graduate course titled
"Pursuit-Evasion Games with Sensor Actuator Networks" will be developed. In this course, students will
gain theoretical background and skills in distributed sensing, control, optimization and game theory; and
apply these skills by testing their algorithms on the experimental setup.